RUI: Applications of the Modified Faddeev Equations

Computational research using a modified form of the Faddeev equations suitable for the treatments of long-range coulomb interactions, is applied to antiproton collisions with positronium.